REU site at Syracuse University: Undergraduate Research Experience in Chemistry

This award by the Chemistry Division supports a Research Experiences for Undergraduates (REU) site at Syracuse University for the summers of 2006-2008. The program director is Karin Ruhlandt-Senge who is assisted by co-PI Michael Sponsler. Thirteen students and several high school teachers will be exposed to a vast array of chemistry subfields and related interdisciplinary topics each year. To ensure a common discussion platform for all participants, weekly luncheon sessions will be held. The lunch meetings will initially offer presentations dealing with practical topics, followed by faculty research and then REU participant presentations. This program is geared to maximize laboratory time, while also providing valuable social and scientific experiences outside the laboratory. The inclusion of eight Austrian undergraduate students will provide significant international exposure to all participants. Participants will experience the entire scientific process: planning and conducting experiments, interpreting results, drawing conclusions, and communicating their results orally and in writing.